U.S.-German Cooperative Research: A Study of Spontaneous Fission

0128954
Ramayya
This award is a renewal of an earlier award that supports A.V. Ramayya, Joseph Hamilton, and a graduate student from Vanderbilt University in a collaboration with Walter Greiner of the Department of Theoretical Physics at the University of Frankfurt, Germany. The project will focus on understanding the mechanisms of cold (neutronless) fragmentation of nuclei. The collaboration brings together the experimental expertise and facilities on the U.S. side with the theoretical capabilities of the German side. Recently, new facilities (namely, large germanium arrays such as Gammasphere and Eurogram II) have made detailed spectroscopic studies of neutron-rich nuclei possible, resulting of observation of new structural features. This in turn has led to some entirely new approaches to the study of fission. The collaboration supported here will bring together experimentalists and theorists in a way that will significantly advance the field of nuclear fission.